RUI: Continuum Models of DNA and Protein Coils

Manning
The investigator and his students and colleagues study
elastic rod models of biological molecules, including DNA and
coiled-coil proteins. In the case of DNA, a classical rod model
is enhanced by including intrinsic curvature, flexibility, and
deformations imposed by protein-binding. Among other
applications, this model is used to analyze cyclization
experiments, which can probe DNA and protein structure and
flexibility under biologically realistic solvent conditions. The
large deformations imposed on DNA by cyclization and bound
proteins require the consideration of DNA self-contact, a topic
of contemporary interest in elasticity theory. The stability of
configurations in the presence of such self-contact is a major
mathematical focus of the investigator's work. On the protein
side, the rod model is applied to alpha-helical protein regions
that are interwound into coiled coils. The application of this
model to classical polymer physics experiments, such as atomic
force microscopy and single-molecule pulling experiments, should
shed light on the mechanical properties of these coiled coils, in
much the same way as this combination has done for DNA.
The past several decades have seen the mathematical theory
of elastic rods contribute considerably to the understanding of
DNA. Enhancements in both the model and DNA experiments have
allowed researchers to address more and more biologically
interesting questions, such as the connection between base-pair
sequence and DNA structure. The investigator has contributed to
this research field, via several recent projects involving
undergraduate research students on such questions as the
flexibility of the TATA box sequence in DNA (which plays an
important role in the transcribing of the genetic code to RNA)
and the stability of rods in contact with obstacles (an important
precursor to understanding the stability of DNA supercoiled
around itself). In addition to further pursuing these studies,
the investigator extends these techniques to an area where they
have seen little application: proteins. There has been a growth
in recent interest in coiled coils, a subset of proteins with
basic structure plausibly like DNA. The investigator is in an
active collaboration with a group of protein biologists,
chemists, and physicists on a nanotechnology project to design
protein wires using coiled coils. The expertise developed from
this collaboration, combined with the investigator's experience
in modeling DNA, provides an excellent opportunity to make a
first step at designing a rod theory for coiled coils, which will
be a useful theoretical tool in the engineering of protein wires,
in much the same way that the rod model has proven useful for
understanding DNA.